REU Site: Rose-Hulman Undergraduate Research Experiences In Mathematics

The Rose-Hulman Institute of Technology will host an REU site in mathematics for the summers of 2004-2006. Each summer two faculty members will each mentor a team of four undergraduates, a total of
eight students, for eight weeks. Research topics stem from the senior personnel's expertise: inverse problems for partial differential equations; ``prescribed curvature'' problems leading to nonlinear partial differential equations; and ``cwatsets'', a rich concept that originated in this REU and which has gained a
considerable following in the mathematical community.

The program is designed to develop the participants as ``complete'' mathematicians, capable of making and proving original conjectures, learning independently, working as part of a team, and communicating their results clearly to others, both orally and in writing.